NIRT: Deformation Mechanisms and Manufacturing of Nanostructured Materials Processed by Severe Plastic Deformation (SPD)

This proposal aims to gain fundamental understanding of the
deformation mechanisms that operate in nanostructured metals and
alloys, in particular in those produced by severe plastic deformation
(SPD) methods. Based on this knowledge it further aims to develop full
capability to manufacture these materials in high quality bulk forms.

The extremely attractive (and rare) combination of mechanical
properties (high strength, ductility, fatigue resistance) and
manufacturability of these materials leads to a new class of high
performance alloys for structural uses. It is understood that this
combination of properties is due to the formation of nano-scale grain
sizes in these materials, but the mechanisms responsible for the high
strength combined with high ductility are not well understood. This
presents a fundamental obstacle to the optimization of these
materials, or to predictions of the performance of these materials in
applications.

An integrated approach with strong emphasis on manufacturing is
proposed. On the theoretical side, deformation mechanisms will be
simulated with crystal-plasticity aggregate models and with detailed
models of the grains and grain boundaries. The experimental program
covers a wide a range of strain rates and temperatures, texture
development, and in situ transmission electron microscopy and atomic
force microscopy to directly verify deformation mechanisms. The
experimental results will provide validation to the theoretical
modeling and manufacturing process simulations.

Finally, simulations of the manufacturing processes will enable
process parameter optimization. A complete, miniature, yet fully
scalable, manufacturing facility will be designed and implemented.

The significant impacts of the proposed research are made possible by
the acquired fundamental understanding of the deformation mechanisms,
and include advances in manufacturing techniques to produce these
highly desirable materials in bulk. The miniature manufacturing
facility will become a source of significant quantities of
nano-structured alloys. Finally, the proposal will provide students at
the UCSD and at local K-12 schools with interdisciplinary education in
a cutting-edge area of research.